Development of a Biological Image Processing Facility

Funding is requested for the development of a biological image processing facility. This facility will be used in support of research in behavior, neurobiology, structural biology, biochemistry, and marine ecology. Specifically, projects will investigate: the neuroethological analysis of regeneration and behavioral recovery following spinal cord transaction in the sea lamprey; community ecology of the rocky subtidal zone; vertical zonation of suspension feeders, long-term effects of coral bleaching on the dynamics of epifaunal reef communities in St. John, USVI; and ultrastructural studies of sublethal stress effects in the softshell clam with diagnosed hematopetic disease from Boston Harbor and New Bedford Harbor.